2002 Chemical Physics Summer School Gordon-Kenan Conference, June 16-18, 2002, Bristol, RI

Shaul Mukamel of U. Rochester and Rudy Marcus of Caltech are supported by the Theoretical and Computational Chemistry Program for a Summer School for graduate students and post-doctoral fellows, where instructors will lecture on many-body techniques in chemical physics. The 12-day school will be administered through the Gordon Research Conference office. Lectures will emphasize physically motivated approximations, connections to current experiments, and transferability of mathematical methods to other, quite different problems.

The main goals of the school are to expose students to tutorials in targeted subdisciplines of chemical physics, familiarize them with state-of-the-art techniques in greater depth than normal course work, and allow them to become acquainted with peers at other institutions at the early stages of their careers.